Presidential Young Investigator Award: The Chemistry of Recombination Sites at Semiconductor Interfaces

This Presidential Young Investigator Award project is in the general area of analytical and surface chemistry and in the subfield of interfacial charge transfer. The objective of this research is to develop a quantitative, predictive description of the microscopic variables which control photoeffects at the semiconductor/liquid junction. Specific efforts include exploration of new semiconductor/liquid junctions, development of quantitative theories for describing behavior of known systems, and development of chemical and physical probes for the characterization of surface recombination sites at these junctions. This action provides the $25,000 base plus $37,500 in fully matched funds for the fifth and final year of this Presidential Young Investigator Award which was originally granted to Professor Lewis (CHE-8352151) when he was a faculty member at Stanford University. The studies which are enabled by this award are providing insights into how photoelectrochemical processes at semiconductor/liquid interfaces can be controlled and are pointing the way toward the rational design of new and improved photoelectrochemical systems.